EMBRACE-EAR-Seed: Reshaping Environments: Low-Tech, Process-Based Restoration with Beaver Dam Analogues to Enhance Watershed Resilience in Human-Modified Landscapes

Urban streams are "ﬂashy," and have rapid ﬂuctuations in water levels, leading to frequent ﬂooding and pollution in urban areas. By mimicking the functions of natural beaver dams, beaver dam analogs (BDAs) oﬀer a sustainable alternative to conventional, often costly, stormwater systems. BDAs may enhance the ecological resilience of urban streams by improving their ability to withstand and recover from adverse eﬀects such as ﬂooding and pollution. This project, based at Susquehanna University’s ﬁeld station, evaluates newly constructed BDAs and their eﬃcacy in improving the health and management of urban streams overwhelmed by stormwater. The outcomes will inform whether adoption of low-cost, low-tech, process-based BDA restoration methods is eﬀective in controlling stormwater. By evaluating eﬀectiveness of BDAs, the study will support decision making about the broader adoption of BDAs by city planners and policymakers as a new approach to urban stream management.

Through ﬁeld-based investigations at an on-campus demonstration site, this project will determine how BDAs can stabilize ﬂashy urban streams and improve their capacity to absorb and mitigate the impacts of extreme weather events such as storms, droughts, and ﬂoods, as well as other urban stressors. Detailed monitoring of changes in water ﬂow, retention, and quality will be used to assess the eﬀectiveness of BDAs. The project will also evaluate the cost-eﬀectiveness and ecological beneﬁts of BDAs in comparison to traditional stormwater management solutions like concrete channels and culverts, which are typically more expensive and oﬀer limited beneﬁts for ecological health and stormwater management. BDAs may demonstrate signiﬁcant economic and environmental advantages. Furthermore, this project will broaden its reach beyond academic research by partnering with local organizations to provide BDA-focused educational programming. This will enhance community involvement and promote sustainable stormwater management practices.